The 'Scientists In Action' Series: A Generative Approach to Authentic Scientific Inquiry

This project is to design and develop a set of four video- based Scientists in Action episodes including a variety of hands-on activities that provide opportunities for students to work along with scientists (video-based) in using technology to solve environmental and human health problems. The video productions will be patterned after the Jasper series. The first tape will be a re-shooting of the Overturned Tanker episode. Topics of the other three tapes will be chosen with advice from students, teachers, the Internal Review Board and the National Advisory Committee. Software will be identified that can be linked to the video based materials.